SGER: Infrastructure-Level Protection to Ensure Critical Communications

The availability of critical services and systems becomes an extraordinary urgent and important issue, as we see more and sophisticated cyber attacks aiming at disrupting these key services and systems. This proposal addresses the fundamental issues and investigates strong protection schemes for critical communications on the nation's information infrastructure. The proposal is focusing on bandwidth flood attacks and proposes a bandwidth reservation framework at the infrastructure level to assure the service quality of critical communications under flood attacks.